An Accessible Online Resource for Mathematics Students and Instructors

Mathematical Sciences (21). This project is adapting multimedia demonstrations of mathematical concepts to make them accessible to students with sensory disabilities. The intellectual merit of the activity lies in its use of a well-recognized and established collection of resources, "Demos with Positive Impact" (CCLI-EMD DUE-9952306) as the source material for adaptation. Major components include adapting existing animations for captioning and audio; addressing issues of text legibility for display of mathematical symbols; and adapting existing web pages for more effective use with screen readers. The project is also having a broad impact by enabling the target audience to have access to previously unavailable high quality multimedia demonstrations.